Almost Periodic and Multivariable Periodic Matrix Functions: Extensions, Factorizations, Applications

DMS-9800704 PI: L. Rodman, I. M. Spitkovsky, H. J. Woerdeman. For periodic matrix functions of several variables, the positive extension and contractive extension problems will be studied.The positive extension problem arises in signal processing when spectral estimation of stochastic processes are required. The contractive counterpart arises in such fields as the worst-case control, e.g., in the model-matching problem. New support sets with the positive extension property will be identified, and a description of all solutions (including a maximum entropy solution) of the respective extension problems will be given. For this purpose, new versions of the band method, suited for the multivariable setting and including dual norm results, will be formulated. For finite sets which do not have positive extension property, numerical algorithms based on the reduction to matrix completion problems will be developed. The results obtained will be related back to their applications.The principal investigators will continue a systematic study of almost periodic factorization. This factorization arises naturally in diffraction theory, distributed parameters control systems, and the spectral estimation problem for a class of stochastic processes. New existence results will be obtained and then used in applications to almost periodic versions of the Corona problem and stable rank one property, Krein's theorem on orthogonal matrix polynomials, the Beurling-Lax theorem and the geometry of shift-invariant subspaces of the Besicovitch space. Almost periodic factorization will also be used in the spectral theory of various operators (including Toeplitz, Wiener-Hopf and other convolution type operators) with matrix almost periodic and semi almost periodic symbols on weighted Lebesgue spaces, and in almost periodic extensions and interpolation problems. Connections with the respective problems for periodic functions of several variables will be exploited. New procedures for explicit almost periodic factorization will be developed and applied to a constructive solution of convolution type (in particular, difference) equations on finite intervals. These results will be further applied in the scattering theory for the generalized Schrodinger equation. The proposed research aims to develop new mathematical tools and techniques, motivated by potential uses in diverse areas of science and technology. A typical application in medical sciences, seismology, signal processing, or physics involves reconstruction (as much as available data allows) of the intrinsic structure of an object of study, given only a few surface measurements. Statistical applications involve prediction, or prognosis, of a process in probabilistic terms, when only a brief history is known. There are currently available mathematical techniques that underlie many recent technological advances in these areas. However, the existing techniques deal mostly with the case when there is only one variable (typically time or distance along a line) involved. The immense complexity of real-life systems calls for new mathematical developments, in particular it calls for an extension of the existing theory to the case of more variables (allowing for instance for planar and spatial variables). The proposed research seeks to make substantial contributions in this direction. Interaction and collaboration with many researchers in different fields is an integral part of the proposal. The principal investigators also plan to involve undergraduate students in parts of their research.